SaTC: STARSS: Small: Collaborative: Design and Security Verification of Next-Generation Open-Source Processors

This project will develop new open-source processor architectures with advanced security features. The security features will be added to existing open-source processors to help protect the confidentiality and integrity of data and to protect against side-channel attacks. Beyond the design, the project will also provide new methodology to verify the proposed security feature, to provide assurance that the processor hardware itself is provably secure.

The first thrust of the project focuses on side-channel protections, especially of processor caches, and other functional units that can be exploited to leak secret information. It further adds security counters and new means to protect trusted software modules. The second thrust focuses on the design of the security verification approaches for hardware, including the use of satisfiability modulo theories (SMT) based solvers and temporal logics.

If successful, this will make open-source processors and their applications more secure against attacks. It will enable the academic community to further develop and extend the capabilities of the ope-source secure processor and further education in hardware security.

All artefacts developed by this project will be available online at http://caslab.csl.yale.edu/code/ or http://palms.ee.princeton.edu. The web sites will be maintained for the duration of the project and as long as the research groups involved in this project are active.